Electromagnetic Interaction Studies of Nucleons and Nuclei

Research will be carried out utilizing electromagnetic and electroweak interactions to study nucleons and nuclei. Primary emphasis is on measuring elementary nucleon form factors, studying the few-body system with emphasis on the deuteron, and initiating a program of parity violating asymmetry measurements to determine the role of strange quark admixtures to the nucleon ground state. This research is being undertaken at the Bates Linear Accelerator Center and CEBAF, with calibration of proton and neutron polarimeters being performed at IUCF and Saclay. Efforts to be supported include: (1) commissioning of the Bates recoil proton polarimeter and carrying out an initial experimental program with this polarimeter; (2) continuation of neutron electric and magnetic form factor measurements at Bates and CEBAF; (3) carrying out a program of d(e,e'p)n polarization transfer measurements as part of the initial Hall A physics program at CEBAF; (4) beginning an experimental program of parity violation measurements at CEBAF. The development and exploitation of new spin physics techniques are major objectives of this program. William and Mary College will also design and construct the Hall A coincidence trigger using CEBAF equipment funds and graduate student manpower.